Theory of Loosely Bound Composite Systems: High Order Corrections to Lamb Shift and Hyperfine Splitting

Recent experimental progress in the measurement of the 1S-2S transition frequency of Hydrogen, the Lamb shift, the deuterium isotope shift and the muonium hyperfine splitting show that it is important to include higher order terms in the effective Hamiltonian to get agreement between quantum electrodynamical theory and experiment. The research will address these issues by performing state-of-the-art, QED calculations to the 10kHz in atomic Hydrogen.